Collaborative Research: Freshwater and Saltwater Fluxes Through Coastal Aquifers: Multiple Time Scales of Terrestrial and Oceanic Forcing

0548691
Mullingan.
Field studies have shown that seawater circulation through coastal aquifers may exceed
fresh groundwater discharge into coastal waters. This observation has potentially
important implications for the quantity and timing of nutrient transport into the coastal
ocean, as well as for inland groundwater fluxes. However, the physical mechanisms
driving this saline groundwater circulation are poorly understood, and, in fact, little saline
inflow has been found to balance the observed discharge. We hypothesize that
seawater exchange is often driven by seasonal oscillations in inland recharge. Because
of the density difference between seawater and freshwater, the freshwater-saltwater
interface can potentially move by as much as forty times the seasonal movement of the
water table, driving large quantities of saline groundwater exchange. However, few
direct measurements of flux across the sediment interface have been taken during the
hypothesized winter saline inflow period, and the actual magnitude of this seasonal flux
and its influence on estuarine nutrient cycles is unknown. Other mechanisms of saline
circulation include tidal pumping, saline entrainment in freshwater discharge, and wave
run-up on the beach. These processes enhance mixing at the interface and may
dominate seawater circulation in some regions. It is unknown how dispersive processes
interact with seasonal cycles, or how the relative magnitude of seasonal exchange and
dispersive circulation may depend on aquifer properties, coastal processes, or recharge
patterns. We will address the following questions: (1) How do saline groundwater
circulation and freshwater discharge respond to combined forcing from processes that
occur over different time-scales such as inland recharge and tides? (2) How do these
processes affect nutrient delivery to coastal waters? To answer these questions, we will
combine high-frequency measurements of submarine discharge and inflow with detailed
numerical simulation of the density-coupled transient coastal groundwater system.
Measurements will rely on a network of flux stations connected by wireless links; vertical
hydraulic gradients will be measured automatically and relayed to shore. We will
combine detailed field measurements of water and chemical fluxes with simulation
models of groundwater flow to develop an understanding of the processes that drive
seawater exchange and groundwater flow in coastal aquifers.
Accurate physically based models of water exchange between aquifers and coastal
waters could help solve a variety of problems that exist at the interface of hydrology and
coastal oceanography. First, seawater circulation through coastal aquifers impacts
inland freshwater systems by changing the store of fresh groundwater, potentially
modulating seasonal water table cycles, and affecting saltwater intrusion and up-coning
in regions where groundwater resources are overdrawn. Flux across the shoreline is a
significant source of uncertainty in coastal hydrologic water budgets and groundwater
models. Second, seawater circulation affects coastal waters by transporting chemicals
into and out of the ocean. For example, excess nutrient inputs can adversely affect
fisheries through eutrophication caused by excessive algal growth. The dynamics of freshwater-saltwater interactions in coastal aquifers control the timing of these solute fluxes to coastal waters. The spatial patterns and dynamics of saline water cirulation may drive important biogeochemical reactions within coastal aquifers.